SGER: Extent and Type of Mold Damage in New Orleans' Buildings and its Impact on the Integrity of Structural Materials

0553166 Woertz The objective of this project is to collect building materials from the flood-devastated areas throughout New Orleans over a three-month period. The purpose of this work is two-fold:
1. Sampling will allow a determination of the extent and type of mold growth within residences in Orleans Parish on both spatial and time scales.
2. Sampling and storage of these materials will create a real world repository of materials for future work by the investigators.